Heat Transfer Modeling for the Control of Fouling in Heat Exchange

The formation of a deposit or film on the surface of heat exchange devices reduces the rate of heat transfer and, correspondingly, the efficiency. The negative impact of the fouling amounts to billions of dollars per year. To control fouling, its root causes must be understood. The present proposal seeks to understand the causes of biofouling. The relationship between biofilm thickness, pressure drop, and heat transfer in a circular tube will be investigated. The use of sensors to detect the degree of fouling will be explored.